A Study of the Cosmic Ray Modulation and Solar Cosmic Ray Events Using Ground Based Neutron Monitors and Spacecraft Cosmic Ray Detectors

This research will continue the operation of the neutron monitor at Mt. Washington, to use cosmic ray data from the IMP8, Voyager 1 and 2 and Pioneer 10 spacecraft to investigate the cosmic ray intensity at the various heliocentric distances (1 < R < 51 AU ) and to study the acceleration, injection and propagation of solar protons for a few selected solar cosmic ray events. It will concentrate on the following tasks: 1) onset of the new modulation cycle in 1987-1988 as a function of heliocentric radius; 2) heliospheric boundary modulation; 3) theoretical boundary; 4) integral latitudinal and radial cosmic ray gradients in the outer heliosphere; 5) effects of the wavy current sheet upon the cosmic ray modulation; 6) other studies: a) acceleration, injection and transport of protons in selected solar cosmic ray events; and b) cosmic ray modulation during Forbush decreases. ***//